Parallel Processing with Clustered Workstations

9360753 Ramanujan This project is to develop a new approach to clustering workstations, called the network shared memory approach. It has three specific advantages over other approaches: (1) it is capable of delivering performance that is at least an order of magnitude better than that attainable using existing techniques for clustering workstations; (2) it greatly simplifies the programming task by providing a shared memory abstraction to the programmer; and (3) the cost of attaining this performance and programmability is several times lower than that of commercially available shared memory parallel processors of comparable computing power. The results of this work can be applied to cluster workstations into a high-performance parallel computer at a fraction of the cost of commercial parallel computers. ***